NMR Spectrometer with Computer Interfacing for UndergraduateChemistry Laboratories

This project will make a significant contribution to the undergraduate chemistry program at Mills College by providing a 60-MHz NMR spectrometer with a variable-temperature accessory and sophisticated computer interfacing. Acquisition of this instrument is part of the on- going curriculum development in the department. The computer-interfaced NMR will be used by students in organic chemistry, instrumental analysis, biochemistry, physical chemistry, and undergraduate research. In addition, new experiments for undergraduate laboratories will be developed to investigate temperature-dependent phenomena and the application of NMR techniques to biochemical problems. This project will help Mills College continue to make a significant contribution to preparing women for careers in science.